Lane County School Districts and University of Oregon Partnership to Enhance Science, Technology, Engineering and Mathematics (STEM) Education

This GK-12 project supports fellows at the University of Oregon, from the departments of Physics and Chemistry, for educational activities with grade K-12 students in the rural Lane County school districts. Eleven graduate students and two advanced undergraduates are supported per year. The themes are hands-on experience, inquiry-based learning, and, for K-8, the creative use of "Science and Technology for Children" science kits. The intellectual merit of this project includes the opportunity for the Fellows to work with teachers who help them develop effective teaching skills while honing their own understanding of mathematics and the sciences. The broader impact is the help given to the schools as they adapt the kits for uses consistent with the state science standards. This project is receiving partial support from the Directorate for Mathematics and the Physical Sciences

Project title: Partnership to Enhance Science, Technology, Engineering and Mathematics Education
Institution: University of Oregon
PI/Co-PI: David Johnson, Dean Livelybrooks, Caroline Page, David Tyler
Partner School Districts: Lane County
Funding: $ 1,490,824 total for three years
Number of fellows/year: 11 graduate, 2 undergraduate
Setting: Rural
Target audience: K-12
NSF supported disciplines involved: chemistry, physics and mathematics